Interactions Between Cognition and Language in the Transition from infancy to Early Childhood

About the time that children begin to talk, there are also important changes in their problem-solving abilities. Are these two developments related? In particular, does learning to use certain words allow children to solve new problems? This research will explore two areas of problem solving that might be related to language. When they are about eighteen months old, children begin to classify objects in new ways. When they see a mixed-up group of different kinds of objects, they may put each kind of object into a separate pile. At about the same time, they often have "a naming spurt", suddenly beginning to name every object they see. In earlier research, there was a relation between these two developments, with children who had a naming spurt early also beginning to group objects early. Also at about eighteen months, children begin to use words like "in" and "out," while at about the same time beginning to understand how containers work in a new way. This research will explore whether these two developments are also related. The research will compare children who hear different kinds of languages, in order to try to tell whether the new words are leading to the new problem-solving abilities. Korean- and Japanese-speaking mothers use many fewer names than English speakers, and they use more words that talk about movement, particularly verbs. Korean- and Japanese-speaking children may develop the ability to classify objects later, but may develop the ability to understand containers earlier. In addition, the research will explore the effects of exposing different English- speaking children to many names or alternatively to many verbs. Children who are particularly exposed to names may be advanced in classifying but not in understanding containers, while those exposed to verbs may show the opposite pattern. Learning to talk may allow children to think in new ways, and the specific words they hear may influence the kinds of problems they can solve.